Investigation of the Use of Interactive Video Exhibits in Earth and Planetary Sciences at Science Museums

The Interactive Video Science Consortium is a non-profit group of fifteen science centers and museums that proposes to develop interactive video exhibits about Earth and Planetary sciences with two purposes in mind. One, the video exhibits on the two subject areas will serve as educational vehicles for four million visitors, representing the combined audiences of the fifteen participating museums. Two, through extensive testing and visitor research during the development process the consortium members will enlarge understanding of the appropriate and effective uses of the interactive video medium in science museums. Consortium members will fund the costs of conducting research on the subject matter and producing the first two discs. The request to the National Science Foundation is for the systematic analysis of the effectiveness of this type of program and of the educational impact of the medium in science museums.